Repairs and Improvements to the URI/GSO Pier Facility

9527566 HAHN This project will make repairs to the docking facility of the NSF-owned R/V ENDEAVOR at the University of Rhode Island, Narragansett, RI campus. Piles, a catwalk an offshore mooring line, permanent fenders and curbing will be repaired or replaced to ensure the safety of the ship in heavy seas and storm surges and for crew safety during docking and undocking operations. ***